CAREER: Molecular design through oxacalixarenes: synthetic methods, molecular receptors, and chemical sensors

With a CAREER Award from the Organic and Macromolecular Chemistry Program, Professor Jeffrey L. Katz of Colby College is developing methods for the synthesis of oxacalix[n]arenes and exploring applications of these compounds as molecular receptors and chemical sensors. A new single-step synthesis of oxacalixarenes by nucleophilic aromatic substitution of meta-diphenols with meta-dihalogenated aromatics allows access to an array of oxacalix[n]arenes bearing diverse functional groups. Naphthyridine-containing oxacalixarenes are found to act as receptors (molecular tweezers) for neutral aromatic compounds bearing hydrogen bond donors, and the optical properties of these receptors makes them potential chemical sensors for neutral organic analytes.

With the support of the CAREER award, Professor Katz will initiate a research-based mentoring program for the recruitment and retention of minority students into chemistry and other scientific disciplines. As an integral part their freshmen year and continuing throughout their undergraduate education, minority students at Colby College will have active roles in the proposed research, participate in research group meetings, attend and present posters at local and national meetings, and interact academically and socially with other student-scientists.